Modeling of Guided Wave Optical Components

Significant advances have been made in the utilization of high data-rate optical fiber communication systems. Developments in processing technology have led to the planar fabrication of various optical guided wave and opto-electronic components. Advances in material technology combined with the convenience of parallel signal processing in optics have sustained the interest in optical computing. However, the fabrication of guided wave and opto-electronic devices is a complex matter. Variations in material growth and microfabrication processes affect their optical and electronic properties which directly affect the performance of the devices and systems. While the material "constants" can only be obtained from measurements, the design of the integrated system must be done in such a fashion that system performance can be predicted. Computational models, eventually computer aided design, are necessary. Researchers at the University of California San Diego will investigate the modeling of components in LiNbO3 materials. Investigation will be made of computational models for index profile, electro-optical index change, and passive and active devices including the effects of microwave properties and system representation of the components. Collaboration will be established with Crystal Technology and Westinghouse for experimental data on devices and computational techniques. The institutional support is adequate and the PI is well qualified to carry out the research.